Mathematical Sciences: Geometric Problems in Classical Analysis

In this project the principal investigator will study several problems in the geometry of functions of a complex variable. One of his major goals is to find simple geometric conditions that can be used to determine if a domain in Euclidean space supports the Poincare inequality. This work has applications to the study of boundary value problems for partial differential equations, and it would provide information on the geometry of univalent mappings of a disk. The principal investigator will also study the influence of differentiation on the distribution of zeros of entire functions and problems involving the integrability of harmonic functions. Many problems involving the properties of functions of a complex variable can be studied from a geometric point of view, since such functions are, after all, mappings of the Euclidean plane into itself. In this project the principal investigator will use various geometric ideas to study problems in complex variables that relate to the solvability of boundary value problems, the properties of univalent mappings of a disk and the integrability of harmonic functions.